Exact Results in Model Statistical Systems

This research focuses on the exact study of the statistical mechanics of model systems.
Research concentrates on critical percolation in two-dimensions, and important and
extensively studied statistical system, and the phase transition of the farey fraction spin
chain, a new and interesting one-dimensional model with connections to multifractals and
Monte Carol simulations, mathematically exact solutions of model statistical
mechanical systems, and techniques from number theory. The goal is to gain new
insights into, and understanding of, these systems. An important feature of the project is
the use of techniques from pure mathematics and close collaboration with
mathematicians.
%%%
This research focuses on the exact study of the statistical mechanics of model systems.
Research concentrates on critical percolation in two-dimensions, and important and
extensively studied statistical system, and the phase transition of the farey fraction spin
chain, a new and interesting one-dimensional model with connections to multifractals and
Monte Carol simulations, mathematically exact solutions of model statistical
mechanical systems, and techniques from number theory. The goal is to gain new
insights into, and understanding of, these systems. An important feature of the project is
the use of techniques from pure mathematics and close collaboration with
mathematicians.